MRI: Acquisition of Super-resolution Fluorescence Microscope

1337804
Payne

Super-resolution fluorescence microscopy provides 20 nm resolution using visible light. This
level of resolution allows scientists and engineers to investigate cells, organelles, viruses,
and nanoparticles on their relevant length scale. A group of 23 Georgia Tech faculty members
in 7 departments propose to acquire a Zeiss LSM 780 Elyra PS1 Combi super-resolution fluorescence
microscope to advance research along 3 themes; Cellular & Engineering Bioscience, Complex
Systems, and Nanoscience. The microscope will be part of the Georgia Tech core facilities
located in the Parker H. Petit Institute for Bioengineering and Bioscience (IBB). These core
facilities are available to any academic or industry researcher and we expect the super-resolution
microscope will be a valuable tool for researchers throughout the Southeast. The core facilities
also provide professional staff to oversee maintenance and training, as well as long-term
stewardship of the microscope. In addition to advances in research, this microscope will be
a valuable educational tool for high school students, undergraduates, graduate students, and
postdoctoral researchers, both at Georgia Tech and in Atlanta.